Research Initiation Award: Dimensional Analysis In The Interpretation Of Concrete Pavement Behavior

This project will investigate the behavior of a slab-on elastic foundation with respect to combinations of slabs, and subjected to several time prints. The results will generalize the current procedures. The investigation will consider extrusive data bases of analytical, numerical and experimental results.